Nonlinear Flow and Flight Tracking Control Methods for Unmanned Aerial Vehicles Using Microjet Actuators

The primary science objective of this award is to develop new methods of simultaneous flow and flight control for microjet actuator-based unmanned aerial vehicles (UAVs) in the presence of uncertain operating conditions and uncertain nonlinear actuator dynamics. Microjet actuators transfer linear momentum to a flow system by using a vibrating diaphragm, which creates trains of vortices through the alternating ejection and suction of fluid through a small orifice. Microjets can be utilized to modify the boundary layer flow field near the surface of an aircraft wing, which can improve UAV aerodynamic performance and maneuverability. Benefits of the use of microjet actuators include small size, ease of operation, low cost, and no requirement for a separate fuel supply. The study will investigate new methods of nonlinear control, which incorporate the complete nonlinear UAV dynamics in addition to the boundary-layer flow field dynamics in the design. A focus of the proposed research will be the development of practical control designs that require minimal computational complexity. Deliverables include new theoretical control design techniques, demonstrations via numerical simulations, performance validation via wind-tunnel experiments, engineering student education and research experiences, and hands-on student projects.

It is expected that the results of this research will reduce implementation cost and improve performance of UAV control systems. Moreover, the research will create practical microjet-based control methods that can be applied over a wide range of operating conditions. This will enable the development of cost-effective UAV systems that are capable for real-life implementation. The result of the research will be document in research papers that will be disseminated in conference proceedings and high-impact academic journals. Graduate and undergraduate students will benefit through involvement in research and hands-on projects, which they will draw on throughout their academic or industrial careers.